NSFNET Connectivity for Spring Arbor College

9521799 Crandell Spring Arbor College requests support from NSF for connectio of its campus network to MichNet. MichNet is the midlevel network located in the state of Michigan. MichNet will provide operations management and information services and it will give the Spring Arbor College connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The College needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff, and students of Spring Arbor College.